SGER: Experiments Pursant to Determining the Duration of Barrier Traversal in Quantum Tunneling

9303397 Hagman The proposed research is to measure the duration of tunneling or barrier transversal in quantum tunneling. Laser/STM experiments will be based upon modulation of the barrier height by the electric field of light rather than by current rectification as used in earlier studies. A novel STM with decreased noise and increased stability has been designed for this work. Numerical modeling based on energy fluctuations will be used to support the experimental work. ***